A Continuing Investigation of the Penrose Conjecture in General Relativity

Abstract

Award: DMS-9971960
Principal Investigator: Hubert L. Bray

The goal of this project is to better understand the Penrose
Conjecture in General Relativity, which is closely related to the
Positive Mass Theorem. Both statements can be thought of as
attempts to describe the relationship between the local energy
density of a space-time N (whose metric has signature 3,1) and
the total mass of N. In physical terms, the Positive Mass
Theorem states that an isolated gravitational system with
nonnegative local energy density must have nonnegative total
energy. The idea is that nonnegative energy densities must "add
up" to something nonnegative. The Penrose Conjecture, on the
other hand, states that if an isolated gravitational system with
nonnegative local energy density contains black holes
contributing a mass m, then the total energy of the system must
be at least m. These compelling physical statements translate
into highly nontrivial geometric statements about asymptotically
flat manifolds with nonnegative scalar curvature. The Positive
Mass Theorem was not proven until 1979 by Schoen and Yau, and the
most general version of the Penrose Conjecture is still open.
The investigator recently proved the Riemannian Penrose
Conjecture, which is the Penrose Conjecture for a 3-dimensional
space-like hypersurface M of N with zero second fundamental form.
The proof uses a new approach to the problem (which came out of
research supported by the NSF), and the theorem is the strongest
version of the Penrose Conjecture proved to date. This research
aims to extend these results to prove the most general version of
the Penrose Conjecture, where the hypersurface M is not required
to have zero second fundamental form. It is also hoped that
these new techniques can be used to understand higher dimensional
cases and the behavior of quasi-local mass in General Relativity.

Einstein's Theory of General Relativity is one of two primary
theories (along with Quantum Mechanics) thought to best describe
the laws of physics. In the long run, it is hoped that a better
understanding of the laws of physics will lead to advances which
could lead to a better standard of living for people. Already,
fundamental advances in understanding the laws of physics have
made modern technology possible. The research in this project
goes to the heart of the behavior of matter in General Relativity
and attempts to answer fundamental questions about the additivity
of energy and momentum in space-time. Even so, achieving these
goals would only represent a small step forward in understanding
the implications and intricacies of General Relativity